Future Scientists Program

The School of Science and Technology of Jackson State University will sponsor a Future Scientist Program for high potential secondary school students. The purpose of the program is to motivate young men and women toward research and teaching careers in science and mathematics. The program will include a residential summer enrichment program of six weeks at Jackson State University and follow-up activities involving the participants and their high school science teachers in the development of science projects during the academic year. The majority of participants will be Black students from the public high schools of Mississippi. The summer program activities will include an interdisciplinary study of the atmosphere and climate through classroom and laboratory activities and field trips, focusing on the disciplines of chemistry, biological science, atmospheric science, mathematics and computer science. The ethical aspects of the problems involved in the interaction between man and the atmosphere will be examined. There will also be career exploration activities and close interaction with practicing scientists at Jackson State University and at cooperating agencies, industries and research laboratories. The participants will develop plans for projects, related to the focus of the summer program, which can be carried out in their home schools during the academic year. Program staff will work with the students and their local high school science teachers in the implementation of the projects.